The Design of a Computer Algebra System to Effect a More Relevant Mathematics Curriculum

This project will modify computer algebra systems (CAS) to make it a more suitable, usable learning tool for calculus and then pre- calculus students. The PI Child is the first person to develop a prototypical intelligent tutoring system and a Macintosh graphic interface to Maple. The proposed new computer technology and curricular revisions will be the basis for faculty retraining and teaching of experimental applied calculus, pre-calculus, and summer workshops for secondary school teachers at Rollins College. The equipment will be used for a computer laboratory components, and faculty desktop access to CAS. Two of the senior staff have received grants from the Sloan Foundation to develop CAS. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.